Enhancing the Programming Experience for Engineering Students through Hands-On Integrated Computer Experiences

56: Mechanical Engineering

Proposal ID 0737370

Tennessee Technological University - Department of Mechanical Engineering

This project focuses on significantly enhancing the programming experience for engineering students through improving their ability to effectively use computer control and computer programming to solve real-world engineering problems. The targeted goals of the project include: 1) increasing student competency; 2) increasing student satisfaction rates in freshman level programming courses; and 3) increasing the retention of engineering students. In addition, this project includes the development of a hardware- in- the- loop oriented programming curriculum model to serve as a tool for engaging students in the exploration of various engineering application areas. Mechanical, Electrical and Computer Engineering majors benefit from this new curriculum enhancement.